Development of Research Instrumentation Laboratory

A modern electronics and instrumentation laboratory will be developed at the University of Virginia. This will provide the support infrastructure for research activities in nuclear and particle physics, and will develop detectors and targets to be used at CEBAF and CERN.